Isotopic Studies of the Oceanic Mantle

9314006 Kurz In this project the PI proposes a multiprong approach involving measurement of He, Sr, Ndf, Pb isotopic ratios of oceanic basalts in order to characterize ages and spatial extent of heterogeneities in the oceanic mantle. An important strategy proposed is to obtain olivine/glass partitioning values using laser fusion technique. He also intends to acquire new data on stratigraphically controlled samples form the Hawaiian volcanoes and from Galapagos and other OIBs. ***